Assessment of Research and Development in Japan and Europe

This award will support continued studies of Japanese technologies under the Japanese Technology Evaluation Program (JTEC), and expand this program to Europe. The JTEC program was initiated in 1983 to examine Japanese research and development in selected areas of technology and to access the impact of this R&D on future U.S. economic competitiveness. Each selected technology is studied by a panel of experts who, in addition to their broad knowledge of the field, travel to Japan to see firsthand the current Japanese research activities. The panel then conducts an open workshop to present its results, and it provides a written report. Unlike corporate studies of the same sort, the reports of the JTEC panels are in the public domain and are accessible to both private individuals and Federal policymakers. This effort will extend the JTEC studies to include five additional technologies. An additional study will be conducted in Europe to verify that the methodology that has been used in Japan will be effective there. The detailed research will be conducted by six expert panels that will analyze foreign literature, visit foreign laboratories, and present their findings in workshops and technical reports.